Penrose Conference on Late Precambrian Tectonics and the Dawn of the Phanerozoic

This action provides partial support for a Penrose Conference entitled "Late Precambrian Tectonics and the Dawn of the Phanerozoic" to be held in October, 1992 in Death Valley, California".